Mathematical Sciences: Geometric Aspects of Semisimple Lie Group Representations

An important and inspiring viewpoint in the representation theory of semisimple Lie groups has been the attempt of realizing representations as certain geometric objects, typically as the space of global sections of certain vector bundles on various homogeneous spaces of the underlying group. The project of Professors Zierau and Chang will investigate further this interplay between geometric operations and the corresponding representation-theoretic implications. Chang will study discrete series for semisimple symmetric spaces using D-module techniques, while Zierau will study the space of harmonic forms on Kahler semisimple symmetric spaces in order to unitarize certain representations. This project has to do with the representation theory of Lie groups, which bear the name of the Norwegian mathematician Sophus Lie. These fundamental mathematical objects arise naturally in several ways. One basic example of a Lie group is the group of rotations of a sphere, where the group operation consists of following one motion by another. Detailed information concerning this group is very helpful in solving mathematical or physical problems in which spherical symmetry is present. Other groups of motions capture other kinds of symmetry. A more algebraic (as opposed to geometric) source of examples of Lie groups comes from the multiplication of matrices. The group of all invertible real (or complex) matrices of a given size is a Lie group, as is just about any subgroup thereof that can be described in a natural manner. It is desirable to be able to go back and forth between the geometric and algebraic points of view, for instance to consider the numerous ways in which the rotation group of the sphere can be realized as a group of invertible matrices. This, roughly, is representation theory. It is useful because facts about the representations of a given group tend to store a lot of information very economically. The research of Professors Zierau and Chang will concentrate on ways to build representations of a group by letting it act on certain kinds of geometric structures.